A Unified Approach Toward Success in Calculus (Fostering Inclusiveness in the Mathematics Major)

9452621 Mignone A Macintosh based computer classroom/lab is being developed for use in the three course calculus sequence followed by a linear algebra course. The interactive learning capabilities, along with the symbolic, numeric and graphical capabilities of Mathematica is being used in the computer classroom/lab in conjunction with structured tutoring provided by the mathematics tutoring lab. The focus group is a group of African American students guided toward the two sections of calculus which will be participating in the first stages of the project.